Postdoctoral Fellowship: MSPRF: P-adic Automorphic Forms and Automorphy

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Vaughan McDonald is “P-adic Automorphic Forms and Automorphy”. The host institution for the fellowship is the University of California - Berkeley and the sponsoring scientist is Sug Woo Shin.